Equipment for Low Temperature Physics

Funds are requested for the purchase of equipment of critical importance for the pursuit of experiments in the area of low temperature physics at the University of Massachusetts. The equipment will permit interesting and timely experiments in the areas of: films of 3He/4He mixtures; localization; and the behavior of helium in restricted/disordered environments.